Policy Workshop in NREN Issues

Passage of the High Performance Computing Act of 1991 initiated an active cycle of planning for implementation of the National Research and Education Network (NREN) by federal agencies, educational institutions, and private sector firms. Many of these agencies and organizations have previously been active in networking but a number are new to the field as a result of expansion o the scope of the NREN during Congressional deliberations. To assist the study process and NREN constituent organizations in their own activities, a two day policy and planning workshop is planned. The workshop will serve several important goals: -bring together in a single forum one hundred o the individuals most directly concerned with NREN planning and implementations; -provide an informed critique of policy proposals and positions from organization with roles in the implementation and operation of the NREN; -reduce to written form the consensus of the workshop on the major policy issues on which the Congress has requested an Executive Branch study. The consensus of the workshop does not imply unanimity with respect to proposals for future Congressional or Executive Branch actions involving the NREN. However, it is expected that illumination of agreements and differences in policy positions, and the reasons for deferring assessments, will be valuable to federal agencies and to the Congress in the evolution of the NREN program. This conference will bring together policy level representatives from the numerous constituencies which are essential for the design, development, deployment, and operation of a robust, high performance computer network to meet pressing needs for improved research collaboration and productivity in the United States.